REU: Competitive Displacement: The Role of Reproductive Mode and Parasitism

This research concerns the role of sex, parasites, and clonal diversity in observed competitive displacements among geckos in the tropical Pacific. A wide-scale biogeographic pattern has been documented which a sexual house gecko, Hermidactylus frenatus, (Hf) upon introduction to islands in the Pacific, replaces at least three other species as the common urban gecko. Two of the three species (H. garnotti (g) and Lepidodactylus lugubris (L1) reproduce parthenogenetically. In addition, the coral atoll of Takapoto (in the Tuomotus) is an ideal study site for a competitive displacement of undescribed sexual Lepidodactylus species by the parthenogen L. lugubris. Experimental results to date verify the competitive displacement of LI by Hf and suggest possible mechanisms involved. The principle investigators propose introduction experiments in bunkers in Hawaii to determine the role of aggression and light (as it concentrates insect food) on competitive dominance. In Takapoto the researchers will assess the fine scale distribution of the sexual, asexual and hybrid Lepidodactylus species and the incidence of parasites across space. Previously, these researchers have much higher incidence of blood parasites in asexual gecko species compared to sexuals. The present work will determine how general this pattern is within the genus Lepidodactylus and if it can be related to molecular polymorphism, which has been uncovered, in the major histocompatibility complex.